A Model to Enhance Elementary Science Teaching in Rural Communities

A Model to Enhance Science Teadching in Rural Communities is a support system for 40 rural elementary school science teachers consisting of summer elementary institutes, academic year follow-up sessions, and the development of local community and business support for science teaching in each participating rural community. This 24 month program organized by scientists and science educators at Texas A&I University, a designated minority institution, also seeks to improve language skills through science instruction in an area where the predominant language is Spanish.